Multimedia Based Computer Assisted Learning Laboratory (MCALL)

Through this grant, the development of a Multimedia-Based Computer- Assisted Learning Laboratory (MCALL) is used as a pilot project to improve the educational quality of undergraduates in science programs. The new lab can achieve the following educational objectives: (1) improve instruction and learning in biology, chemistry, physics, and computer science, (2) develop advanced skilled students in the area of multimedia, networking, and Graphical User Interface (GUI), and (3) train faculty to do computer-assisted teaching. The lab, MCALL, is being equipped with networked multimedia computer systems loaded with computer-assisted learning software. It serves a selective group of undergraduate students in biology, chemistry, physics, and computer science.